Postdoctoral Research Fellowships in Chemistry

Dr. Cynthia M. Dupureur has been awarded a Postdoctoral Fellowship in Chemistry. Dr Dupureur's doctoral degree was from Ohio State with Professor Ming-Daw Tsai. She intends to continue her research at CalTech with Professor Jacqueline Barton. In Barton's laboratory she will learn many of the techniques for manipulating DNA and learn about metal ion interactions with DNA. This will prepare her for her long range career goal of studying metal ion function in endonucleases and designing molecules to interact with DNA for therapeutic purposes. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.